Midwestern Workshop on Asymptotic Analysis

This award provides funding for US participation in the conference "Midwestern Workshop on Asymptotic Analysis" that will be held at Indiana University-Purdue University Fort Wayne on October 7-9, 2016.

This conference focuses on recent developments in Analysis, especially in the fields of approximation theory, potential theory, complex analysis and applied analysis. A number of distinguished mathematicians have agreed to attend and speak at this conference. The award gives early-career researchers, researchers who are members of underrepresented groups, and researchers not funded by NSF an opportunity to attend and participate in this conference. The organizing committee will strive to make this funding opportunity known to target groups. More information can be found at:

http://math.iupui.edu/~maxyatts/workshop/